Elements: Libra: The Modular Software for Nonadiabatic and Quantum Dynamics

Advances in solar energy technologies, optoelectronic devices, and emerging quantum materials depend on understanding how light drives the motion of electrons and energy at the atomic scale, but accurately modeling these processes remains a major scientific challenge because they involve complex quantum effects that occur on ultrafast timescales. This project expands and modernizes the open-source software platform Libra, which enables researchers to simulate such light-driven quantum processes in molecules and materials. By making advanced computational methods broadly accessible in a reliable, user-friendly, and validated software environment, the project will help researchers across chemistry, physics, materials science, and engineering study processes relevant to solar energy harvesting, photochemistry, and next-generation quantum technologies. These capabilities will accelerate the discovery and design of materials for sustainable energy applications, thereby advancing the national interest by promoting scientific progress and supporting economic prosperity and societal welfare through efficient-energy innovation. The project will also strengthen the nation’s scientific software infrastructure by promoting open-source best practices, reproducibility, and collaboration, while workshops, summer schools, and community training activities will educate students and researchers, broaden participation in computational science, and prepare the next generation of scientists to apply advanced quantum simulation tools in research and innovation.

The project will extend the capabilities of Libra as a modular cyberinfrastructure for nonadiabatic quantum dynamics (NAQD) simulations by modernizing its architecture and implementing a broad range of advanced methodologies within a unified framework. The software will be updated to align with contemporary scientific computing standards, including integration with PyTorch and NumPy, and its core data structures and algorithms will be enhanced to support new classes of quantum dynamical approaches. Planned developments include exact-factorization, quantum-trajectory, and wavepacket-based methods; semiclassical mapped-variable and ring-polymer formulations; extensions to polaritonic dynamics; and novel decoherence correction schemes. Modern machine-learning approaches will be integrated to enable efficient long-time simulations of large atomistic systems while capturing many-body electronic correlation effects. The project will also improve software reliability, reproducibility, and accessibility through containerized deployment, automated testing, centralized benchmarking, curated simulation databases, and extensive documentation. By providing validated algorithmic building blocks, benchmark workflows, and a common platform for systematic assessment of approximate quantum-classical and semiclassical methods, the project will advance method development, establish standardized comparisons across NAQD techniques, and enable predictive simulations of photoinduced processes in complex materials.

This award by the Office of Advanced Cyberinfrastructure is jointly supported by the Chemistry Section of the Directorate for Mathematical and Physical Sciences.